Algebraic Stacks and Invariants of Projective Varieties

In this project, the investigator will study questions in algebraic geometry
that require the use of algebraic stacks. One aspect of this research
will study how in the context of the study of Gromov-Witten invariants, the somewhat
exotic structure of Deligne-Mumford stack
can be related to the more familiar resolutions of singularities which have long
been a staple of algebraic geometry. A second project will focus on bringing
to bear the machinery that has been developed in the theory of algebraic stacks
on the study of Donaldson type invariants.

Algebraic geometry is among the oldest branches of mathematics and is
concerned with studying the solutions of systems of polynomial equations. Modern
applications of this theory often place a strong emphasis on understanding
the symmetries of such systems. The most powerful framework for understanding
geometry in conjunction with symmetries is the theory of algebraic stacks.
This point of view has acquired extra significance due to a surprising
connection to theoretical physics, where attempts to unify quantum
field theory and general relativity have led to a host of interesting
mathematical problems concerning the symmetries of various geometric
structures. This interaction provides a rich source of problems where the
language of stacks, which has a reputation for being excessively abstract and technical,
can be used to study very concrete questions about simple geometric objects.